Electronic Structure of Hydrodesulfurization Catalysts

This award in the Inorganic, Bioinorganic, and Organometallic Chemistry Program supports research by Dr. Suzanne Harris of the Chemistry Department, University of Wyoming, on hydrodesulfurization (HDS) catalysts. Approximate electronic structure calculations (Fenske-Hall) will be used to examine both solid state and molecular systems related to HDS. Thiophenic binding sites on the surfaces of active HDS catalysts, such as ruthenium, rhodium and promoted molybdenum sulfides, will be compared to those in model thiophenic molecules. Calculations will be carried out on both adsoption of thiophene at selected surface sites on these sulfides, and on related groups of complexes incorporating thiophenes, benzothiophenes, and dibenzothiophenes. These calculations will make it possible to evaluate how the nature of the transition metal center, its coordination geometry, the other ligands bound to the metal, and the nature of the thiophenic ligand itself affect the binding and activation of thiophenic molecules at one or more metal centers. This is the first theoretical attempt to relate heterogeneous hydrodesulfurization (HDS) reactions to the homogeneous chemistry of metal thiophene complexes. HDS is used in the petroleum refining industry to remove sulfur from thiophenic molecules in heavy crude oils and coal-derived liquids. At high temperature and hydrogen pressure, the petroleum is passed over a metal sulfide, and the thiophene is removed. The behavior of molecules of metal thiophenes has been used to help understand the behavior of the real catalyst system, but the details of the mechanism remain unknown. In this study, the electronic structure of metal thiophene molecules will be compared to that of the surface of the metal sulfide catalysts in order to better understand the absorption and reactions of thiophenes in HDS catalysis.